SBIR Phase I: Low-Cost Microcomposite Polymer Electrolyte Membranes for High Performance Fuel Cells

This Small Business Innovation Research Phase I project will develop a new ion-conducting polymer (ICP) for use in microcomposite polymer electrolyte membranes (PEM). The project will build on previous work in which the viability of the composite approach to PEM for high temperature H2/O2 fuel cells was demonstrated. In conjunction with Virginia Polytechnic Institute, new ICPs, with enhanced chemical stability will be developed. These novel ICPs will be combined with poly (p-phenylene bisbenoxazole) (PBO) substrates to produce PEMs that out perform the current state of the art fuel cell membranes, while retaining significant cost savings. A well-known fuel cell developer, will evaluate the microcomposite membranes for key mechanical / physical properties to demonstrate feasibility of this technology. The low-cost, high temperature, microporous PEM will address the serious problems (excessive cost, limited power / energy density, and water management issues) which are limiting the use of current PEM fuel cells in all electric based vehicles. The primary objective of the proposed effort is to demonstrate feasibility of a composite PEM with chemical/mechanical stability to survive fuel cell operating conditions for 5,000 hours or more.

The development of high performance, solid polymer electrolyte fuel cells is essential for the success of next generation vehicles, providing power free of emissions (SOx and NOx). Other applications include stationary power generation as well as low power (1 to 50w), mobile fuel cells for battery replacements.